Leadership Development, Content Enrichment, and Process Skill Development (LDCPS)

Forty junior high school science teachers from eleven school districts will participate in a four week workshop at the University of Southern Mississippi. Instruction on leadership development, content enrichment, and process skill development will be provided during the workshop. Field trips that will enhance the instructional program for students will be taken by the participants in the summer workshop. Materials development and evaluation of materials that are effective for classroom use will be addressed during the workshop also. Each participant will conduct a minimum of two in-service workshops for other teachers in their local school districts during the academic year. A primary objective of this workshop is to involve the participants in meaningful activities which they can use in their classrooms rather than providing additional theory only. Provisions are made for school administrators to participate in these in-service activities that will be conducted by the teachers. The participating schools districts and the university staff have made strong commitments to support the in-service phase of this project. Some districts are purchasing additional equipment while others are providing release time and other forms of support. The university staff will visit classrooms in each of the school districts and serve as a clearinghouse and resource center for the area.